CEDAR: Investigation of Conjugate Spread-F Irregularities Using the Digital Portable Sounder

This proposal is for the establishment of a modern digital ionosonde in Argentina at the approximate location of the magnetic conjugate point of the Arecibo Observatory. After the ionosonde is operating, simultaneous measurements at both ends of the field line will be made.***